Upgrade of the UW Chemistry Department NMR Facility

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at the University of Washington will upgrade their NMR facilities. This equipment will enable researchers to carry out research on a) the determination of protein structure and dynamics; b) alkane functionalization with transition metal complexes; c) synthesis and reactivity of transition metal hydrides; d) metal mediated oxidation chemistry; e) rapid local angular motions and slow conformational changes in DNA; and f) RNA recognition by proteins and drugs.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in fundamental synthetic organic chemistry and biochemistry.